Object Systems: Programming Languages and Software Security

This project addresses problems in the areas of object- oriented programming languages and software security. The goals are to simplify the structure and process of producing software systems and increase their resistance to certain forms of insecurity. The techniques are both analytical, drawing on ideas from type theory and mathematical logic, and experimental, involving the implementation of language designs and experimental development of prototype systems. One main focus of the work is the design and implementation of an extension of Standard ML with object-oriented features. Similar language ideas are also considered for C++ or Java variants or design or debugging tools. An experimental evaluation of either language may involve design or redesign of existing software in order to improve its security properties. This might involve network servers such as ftp or http, or an interpreter for a network scripting language. Both the science of software production and software security are considered important areas, with increasing concern for security likely to lead to increasing interest in relevant software analysis methods. ***